Software Engineering and Programming Languages Workshop; June 12-13, 1996, Boston, MA

This award provided travel support for a workshop on the topic of synergy between software engineering and programming language research. The workshop was held June 12- 13 in Boston, MA, in juxtaposition with a Computing Research Association and ACM symposium on strategic directions in computing, June 14-15, in the same location. The software engineering and programming language workshop also received partial funding from ARO. ***